Fallen Leaf Lake Conference on Bacterial Plant Pathogens "Lake Tahoe, CA, September 14-17, 1989"

The Fallen Leaf Lake Conferences initiated in 1985 is a yearly event devoted to the molecular biology and genetics of plant pathogenic bacteria, fastidious prokaryotes and related areas dealing with these microorganisms. Only the latest unpublished information is exchanged at this conference and ample opportunity for scientific interactions is provided during the course of the conference. The conference is attended by members representing most of the major laboratories from many different countries (e.g., Europe, Asia, Australia, India), including the Soviet Union, and therefore provides excellent opportunity for graduate and postdoctoral students to interact with internationally recognized experts in a specific field. Support of the on-going Fallen Leaf Lake Conferences is requested for assistance in providing housing, meal, and transportation costs for graduate and postdoctoral students, keynote speaker and for session chairs. Previous support by NSF has been judiciously used for the above.